NSF Minority Postdoctoral Research Fellowship for FY 1998

Abstract DBI-9807411 Phoebe R. Johnson This action funds an NSF Minority Postdoctoral Research Fellowship for 1998. This fellowship supports research and training in the area of plant biology. The research and training plan is entitled HOOKLESS1 acetyltransferase in plant development: determining function in vivo by identifying interacting proteins, regulatory targets, and localization. The HOOKLESS1 acetyltransferase is the first such enzyme to be identified in the genetically tractable organism Arabidopsis thaliana. Acetyltransferases have many diverse functions in prokaryotes and eukaryotes, from hormone synthesis and drug detoxification, to transcriptional regulation and chromatin remodeling. Plants lacking HOOKLESS1 show developmental abnormalities, providing an opportunity to determine how an acetyltransferase regulates growth patterns in higher plants.